Hadron Collider Physics Conference

The 2006 Hadron Collider Physics Symposium will be hosted by Duke University from May 22-27, 2006. The symposium will be a major forum for the presentation of Tevatron Collider measurements, and has recently been merged with the LHC Symposium. At the Duke meeting, Tevatron results based upon about 1 inverse femtobarn of data will be presented, along with recent measurements made at RHIC. The status and plans for all LHC experiments will also be presented, showing the expected physics reach beyond the CDF and D0 experiments. Included in the conference will be theoretical reviews relevant to the full range of hadron collider research. Broader impacts of this conference include education of young physicists, and outreach to the community. A public lecture is planned for one of the evenings of the conference.